Connections to NSFNET

9504426 Ewen This project connects Colorado Christian University to the Internet over a T1 (1.544 thousand bit per second) line. Faculty and students will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.